Data Management for the 1990-1994 Greenland Ice Sheet Project Two

Paleoclimatic data from ice cores will likely prove to be a principal test by which many aspects of Global Change are evaluated. Deep ice cores from polar regions provide key paleoclimate data sets because they bridge the time scale gap between records with annual resolution, but relatively short time scales (e.g. tree rings), and those which have a resolution of hundreds to thousands of years (e.g. marine sediments). This award provides for the efficient and timely access to ice core data as they become available, as well as provides for the safe, long-term, archival of key data for the Greenland Ice Sheet Project (GISP2). The National Snow and Ice Data Center (NSIDC) will provide data management and archiving services to ensure efficient and centralized access to the total data set and the permanent retention of key data. Because of the widespread and increasing interest in paleoclimate and global change these data sets will be used not only by GISP2 but there will be an ever increasing demand from fields outside glaciology for this type off data.